High-Order Embedded Interface Methods for Wave-Problems

We propose to develop a new family of stable high-order finite
difference methods suitable for the solution of wave problems
involving many interfaces and significant geometric complexity.
These complications are addressed by embedding the computational
problem into a Cartesian grid and formulating methods such that
the position of the material interfaces as well as the physical
properties of the solution across the interface is accounted for
properly to the order of the scheme. Staggered grid as well as
non-staggered grid methods will be explored with the emphasis on
the development of a rigorous mathematical foundation for these
schemes to ensure robustness and uniform stability for all grid
sizes and embedded geometries. Appealing properties of embedding
methods such as the ability to model moving interfaces and the
introduction of virtual interfaces to enhance parallel performance
will be exploited to model a variety of wave problems in
electromagnetics, acoustics, seismology, and elasticity.

The increasing interest in the accurate and efficient solution
of wave-dominated problems, e.g. problems in acoustic and
electromagnetics, over very long periods of time has spawned an
interest in the formulation of high-order accurate computational
methods for such problems. In this effort we propose to develop
a new class of computational techniques, specifically aimed at
the reliable and robust modeling of problems of a realistic
size and complexity, e.g., the modeling of the propagation of
electromagnetic and acoustic noise and its environmental impact, and
the modeling of underground waves of interest to the oil industry.
The proposed methods are unique in maintaining a very simple
computational structure without sacrificing the accuracy, hence
overcoming a number of well known difficulties associated with
existing methods which require some kind of automated generation of
the computational grid on which the solution is computed.
These proposed developments will enable the modeling of
very complex and realistic scenarios and will, in combination
with high-performance computing facilities for which the
methods are well suited, allow for the modeling and analysis
of complex wave dominated problems in a variety of areas of interest
to engineers and scientists.